Understanding the Causes of Bargaining Impasses

ABSTRACT Babcock, Linda C. Carnegie-Mellon University SBR-9409723 The PI proposes to investigate the role of uncertainty in causing self-serving biases which lead, in turn, to bargaining impasses. In the proposed study both field data and experimental manipulations will be used to investigate this issue. First, educators will be surveyed concerning their reservation values in a hypothetical labor dispute. Ambiguity will be manipulated by varying the range of salaries of other school districts. Second, teachers will be asked in the survey what is the geographical area they use in deciding which neighboring school districts are proper bases of comparison for salary determinations. A geographic information system and archival data will be used to investigate the relation between the characteristics of these comparison districts and teacher negotiation behavior. The general hypothesis in this investigation is that ambiguity, defined as variance in comparison group salaries, leads to fewer successfully negotiated settlements.